CRCD: Integration of Computer Architecture and Parallel Programming Tools into Computer Science and Engineering Curricula through Network Computing Hubs

This CRCD project supports the incorporation of tools for computer architecture simulation, performance prediction, program optimization and application characterization into computer science and engineering curricula. Existing courses are being enriched in both content and with experiments not previously possible. This work is accomplished through use of the Purdue University Network Computing Hubs (PUNCH), specifically through expansion of the recently created Computer Architecture and Parallel Programming Hubs to include the tools needed by the targeted courses. Three institutions (Purdue University, Northwestern University and Chicago State University) are involved in the project. Purdue University is leading the effort by integrating several tools into two computer architecture courses and three courses on compilers and parallel programming. The other two institutions are also incorporating tools in at least three courses on computer architecture and parallel programming. All three universities are developing educational materials and are installing tools for shared use through PUNCH.